NER: Coordinated Multi-scale Simulations and In situ Electron Microscopy to Elucidate the Mechanics of Nanowire Formations

NER: Coordinated Multi-scale Simulations and In situ Electron Microscopy to Elucidate the Mechanisms of Nanowire Formations

PI: Judith Yang, University of Pittsburgh
Co-PI: Kyeongjae Cho, Stanford University

To gain mechanistic understanding of nanowire formation via the vapor-liquid-solid (VLS) model as catalyzed by metal nanoparticles, a coordinated experimental, utilizing in situ and ex situ electron microscopy (Yang) and theoretical approach (Cho) will be conducted. We will focus on one model system, such as Au-catalyzed Si nanowire growth. Yang's team will apply in situ and ex situ electron microscopy to characterize the growth of the nanowire, with special attention to the metal/nanowire interface. Cho's team will utilize his hierarchical multi-scale simulations with first-principles accuracy for a specific catalytic reaction. This program will contribute to graduate education in terms of a thin films and theory/simulations classes as well as to undergraduates, via undergraduate summer research and senior projects.